Electronic Theory of Simple Chemical Reactions

This project in the Theoretical and Computational Chemistry Program of the Division of Chemistry involves two distinct but related advances in computational quantum chemistry. The first is the extension, testing, and calibration of a configuration-interaction method based on natural orbitals. The second is the application of the theoretical methods to answer a number of important molecular structural questions. The systems being studied include the ammonia dimer, triatomic halogen radicals, circulenes (hydrocarbons with seven hexagons surrounding a heptagon), and the cyclocarbinyl cation. %%% Modern high-speed computers can be used to calculate the shapes and energies of molecules, including those which have not as yet been synthesized. In this study not only are the computer methods for carrying out these calculations being advanced, but they are also being applied to the study of exotic molecules such as that formed by three chlorine atoms rather than by two atoms as in the more familiar chlorine molecule.